CoolSpec: A Flexible Near Infrared Longslit Spectrograph for McDonald Observatory

This project will build a "cool", moderate resolution, 200<R<2000, slit spectrograph to mate to a near-IR camera at McDonald Observatory. This new spectrometer (the spectrograph part of which is referred to as CoolSpec) offers large advantages, both in sensitivity and operationally, compared to the present near-IR spectrometer, IRGS. The new spectrograph will be flexible enough to take advantage of new developments in near-IR array technology. Observational programs that will be undertaken with the new spectrometer are: studies of star formation in our own and other galaxies, supernova atmospheres, the environment of planetary nebulae, planetary atmospheres, and reflectance spectra of rocky solar system bodies.